Directions in Quantitative Topology

Weinberger plans to develop both quantitative versions of known
theorems of algebraic and geometric topology, extending the basic ideas
of controlled topology into directions of both more and less
smoothness. In part, this interacts with logic and computer science, as
in the analysis of Dehn functions, and applications of Kolmogorov
complexity arguments to variational problems, but the goal is to get
more realistic upper and lower bounds on specific (solvable) topological
problems. A subsidiary task is to understand the "information based
complexity" of geometric problems, and understand the rates of growth of
various sets arising in classification problems via the philosophy of
the Goodwillie calculus.

The motivation for this comes from a number of directions, both
applied and theoretical. In applications of topology to experimental
sciences, one rarely has as explicit space to study: one has large data
sets, and the investigator must infer an underlying space. The features
that often arise as hypotheses in mathematical theorems cannot simply be
seen: they must be detected. One problem to be studied is how to
determine, say, the dimension of such an underlying space. After that
come problems of implementing software and understanding how much data
one needs to make reliable estimates. Another sort of problem comes
from the existence of singularities in many equations of applied
mathematics and geometry. As topology usually confines itself to the
study of continuous maps, the implication of discontinuities of various
sorts could potentially be of use. Finally, in many problems of pure
geometry, the detailed structure of solutions which have only been
proved to exist, but which have never been "seen" would be of great
value. Reproving their existence with quantitative estimates should
lead to a better understanding of their nature.